Ultra High Speed Digital Circuit Synthesis and Layout

The synthesis and layout of control (random) logic blocks for future 1 GHz
and beyond clock frequencies will be a major bottleneck in future digital
system design. The research that is proposed here exactly addresses this
problem by seeking to determine how to synthesize and layout the absolute
fastest possible transistor-based implementations of control logic
networks. It focuses on enabling each step in the design automation flow to
find circuit implementations of maximum possible speed. In particular, what
is being examined carefully is the choice of logic family, the degree and
type of logic minimization, new technology mapping algorithms, and new
layout strategies that make control logic network layouts look similar to
datapath layouts. The primary outcome of this research will be a complete
design automation flow consisting of a suite of optimized and efficient
computer-aided design tools, and an optimized Clock-Delayed domino logic
family that together will synthesize and layout extremely reliable,
mainstream control logic block implementations that are two to three times
faster than what is possible with static CMOS.